Collaborative Research: Simulating Neutron Star---Black Hole Inspirals: From Binaries to Accretion and Jets

An accreting black hole binary system (ABHB) consists of a star
orbiting a small black hole. One particularly interesting example
is a neutron star-black hole (NS-BH) binary, which may be interesting
sources of gravitational waves for gravitational wave observatories such
as Advanced LIGO. The gravitational and electromagnetic wave signals
from NS-BH binaries contains information about the particular evolution of
the binary, including magnetic effects and the disruption of the neutron
star by the tidal forces of the black hole.

This award supports the development of computational infrastructure and
techniques to study ABHBs and related systems. This includes the further
development of HAD, a freely available, modular computational toolkit for
solving differential equations in a distributed parallel environment. HAD
provides sophisticated adaptive mesh refinement capabilities, which allow
the user to combine different types of differential equations and/or
numerical methods. Techniques for solving the Einstein equations and
magnetohydrodynamics (MHD) equations will be further developed and
implemented in the code to meet the demands of simulating ABHB systems and
extracting valuable physical information.

This work serves to advance numerical techniques for an important scientific
problem, as well as the creation and dissemination of advanced tools for
distributed computing. The modular design of the infrastructure allows
other researchers to share and extend these tools. Finally, this study
involves the training of postdoctoral researchers, graduate students, and
undergraduates.